Neurotransmitter Specification and Regulation

9310162 Li Neurotransmitters are the molecular compounds that are used for communication signals between nerve cells, or neurons, in the brain. Development of the proper neurotransmitters is critical to the normal development of the nervous system in any animal, to establish and regulate communication between the nerve cells. This project exploits the extremely simple nervous system of a tiny roundworm, known as C. elegans, which has the added advantage of allowing sophisticated genetic studies. A gene called flp-1 has been discovered to encode a group of compounds called FRMF amide- like peptides that are important neurotransmitters. This work will use molecular genetic techniques to examine the control of the transcription process underlying the expression of the peptides from the gene. The work will characterize the flp-1 gene, and identify the promoter elements and genes that interact with flp-1, important to the specification and regulation of neuropeptide expression. Molecular characterization of this genetic pathway may yield insights into the mechanisms of how neurons are developmentally programmed to express specific neurotransmitters, and results will have impact across many areas of neuroscience, genetics and developmental biology. ***